Photocopying and Document Delivery Services, Deposit AccountNo. 69-74

PROJECT DESCRIPTION: The International Photocopy Service of the British Library Lending Division (BLLD) provides photocopies, microfilms or microfiche of various research documents from its own stock or from that of other major United Kingdom libraries upon request from the King Abdulaziz City for Science and Techology (KACST) in Riyadh. Research documents are duplicated, then shipped directly to KACST. This proposal requests additional funding to continue the use of the service without interruption. JUSTIFICATION: The Photocopy Service of the British Library will locate, then appropriately copy, research documents and forward them to KACST upon request. KACST is using this service for researchers who request certain citations from the KACST Library or by way of their Online Search Service in the Kingdom. Investigators at the Universities in Riyah, Jidda, and other locations then have access to articles, treatises, monographs, etc. just as researchers do in more populous areas, an obvious benefit to scientific research in the Kingdom. Participation of NSF in U. S. Commission activities is grounded in the Foreign Assistance Act (22 U.S.C. 2357). All KACST activities are funded by the Kingdom of Saudi Arabia through the U.S./Saudi Arabian Joint Commission. No. U.S. appropriated funds are used.